SBIR Phase II: Dynamic Broadband Wireless Networks

This Small Business Innovation Research (SBIR) Phase II project will demonstrate
the ability of an adaptive antenna system — a radio with an antenna that changes its
radiation pattern to provide coverage where it is needed — to automatically optimize
coverage. Harsh RF environments, for example those with shifting reflective surfaces
such as shipping container yards, make it hard to set up reliable communication even
when there is only one radio. When several radios must work together to provide
coverage in an extended area, it is extremely difficult and time-consuming to manually
tailor the radiation pattern of each antenna so that every portion of the area receives
adequate signal and the radios do not interfere with each other. Through a combination of
innovative pattern computation algorithms and active sensor feedback, the system
resulting from this project will automatically tailor coverage to meet these goals. The
system will not just be able to set up the initial coverage of an area, it will also
continually monitor the quality of the coverage and automatically adjust to changes in the
system or the environment that may affect the quality of that coverage.

The broader impact/commercial potential of this project is decreased deployment
costs and substantially increased reliability. In the short run, the system will be built with
a WiFi platform for use in the maritime ports market as a more reliable communication
system to run their mission critical scheduling application. The deployment savings result
from not only a quicker and more reliable initial setup but also from automated
adjustments to coverage as environmental factors change — including such radical
changes as the failure of one radio. Because the system is agnostic to the frequency and
the protocol used by the radio, it is not limited to WiFi deployments. The project will
demonstrate this by creating and operating a prototype WiMAX version of the adaptive
antenna system. In the long term, this adaptive antenna technology offers significant
benefits to any large scale radio deployment. For example, as providers roll out the next
generation of cellular, cell sizes will shrink significantly which will substantially increase
the deployment cost. An adaptive antenna system offers not only the promise of reducing
these costs but also adding increased connection reliability to these next generation
systems.